Mathematical Sciences: 1989 Symposium on "Complex Geometry and Lie Theory"

This project is the American Mathematical Society's 1989 Summer Symposium in Pure Mathematics, which is entitled "Complex Geometry and Lie Theory." Its organizers are Professors James Carlson and Herbert Clemens of the University of Utah, and the conference will be held May 26-30, 1989 at Sundance, Utah. The purpose is to review critically the interaction over the last twenty years between algebraic geometry, hermitian differential geometry, and Lie theory, and to identify opportunities for future interactions. There is some participant support available.